Degassing and Crystallization of Anorthoclase Phonolite Magma, Mt. Erebus, Antarctica

Mount Erebus contains a persistent convecting anorthoclase phonolite lava lake. The lake is the top of a conduit which is connected at depth to a major magma chamber. The major objectives of this investigation are to continue surveillance of the volcanic activity of Mount Erebus and to obtain an under- standing of the degassing and crystallization of the anorthoclase phonolite magma. Mt. Erebus is the main source of volcanic emissions to the Antarctic atmosphere. This investigation will determine SO emission rates using a correlation spectrometer to estimate the contribution of Mt. Erebus to the Antarctic atmosphere and to monitor and understand the degassing behavior of the lava lake. Volatile acid gases and trace metals will be collected by sampling the plume from the crater rim using the particle and treated filter pack. When combined with the SO data, quantitive estimates of the emission rates of other elements will be made.